NSF Young Investigator

9357861 Zank This new National Science Foundation Young investigator will develop a basic understanding of the complex, non-linear interactions between fully developed small-scale turbulence and large scale compressible and apparently "laminar" phenomena by investigating a series of relevant, well-posed and important problems in solar, space, and astrophysics. ***